CSR-EHCS(CPS),TM: Architecture for the Safe Composition of Complex Medical Systems

Each year thousands of patient injuries and near-misses are caused by improper or unsafe medical device interactions, because the consequences of device-device and device-human interactions are sometimes poorly understood, leading to hazardous situations.

To provide a framework for addressing these challenges, a consortium of medical, industrial, academic, and government bodies have been collaborating through the “MD PnP” (Medical Device Plug-and-Play) program to identify the broad requirements for the integration of medical devices in high-acuity settings. A subset of these requirements formed the framework for a proposed ASTM Committee F29 standard for the functional requirements of a safe Integrated Clinical Environment (ICE). The committee for this proposed standard is chaired by Co-PI Dr. Julian Goldman.

However, there are many open research questions in extending the current standard to achieve the safe and dynamic composition of medical devices. The purpose of this project is to develop formal and medical procedure context sensitive system composition architecture for safe medical device plug-and-play. This project will do more than just ensure interoperability; it will provide decision support and make sure that the composition of medical devices and information systems with different safety levels will result in a verifiably safe MD PnP technologies. We expected the new technologies will be embedded into future standards, leading to a greatly improved medical device system.